U.S.-Japan Workshop on Mitigation of Near-Field Earthquake Damage in Urban Areas-Comparative Studies of the Northridge and Kobe Experience

9602932 Iwan This award supports the participation of 7 US scientists in a US-Japan seminar on Mitigation of Near-Field Earthquake Damage in Urban Areas, to be held in Honolulu, Hawaii from January 5-7, 1998. The co-organizers are Professor Wilfred Iwan of the California Institute of Technology and Professor Kenzo Toki of Kyoto University. The objectives of the seminar are to: identify and record the important lessons learned from the Northridge and Kobe earthquakes as regards near-field ground motions and their effects on buildings; develop a consensus regarding the nature of near-field ground motions and their unique effects on structures of all types; provide guidance for the development of appropriate methods to characterize near-field ground motions for the purpose of structural design; assess the adequacy of current mitigation strategies as they relate to the effects of near- field ground motions; and determine future needs for mitigation research and applications regarding near-field ground motions. Participants are among the most active researchers in the area of earthquake hazard mitigation, and this seminar is expected to establish and nurture collaborative research between US and Japanese scientists who will mutually benefit from these research ties. ***